Grants for Collaborative Research: John Tyndall and Nineteenth-Century Science

This award is funded under the American Recovery and Reinvestment Act of 2009 (Public Law 111-5)

This is a project to coordinate and complete the transcription of letters and other scholarly works of the Victorian physicist John Tyndall (1820-1893) as intiated by the John Tyndall Correspondence Project. Tyndall was one of the most influential scientists of the nineteenth century. He became a leading figure in the debates over evolution, defending Darwin against his harshest critics, and he published numerous essays and popular books on the role of science and the burgeoning scientist in broader culture. He was an eminent practicing physicist, publishing significant works in electro-magnetism, thermodynamics, sound, glaciers, global warming, and spontaneous generation. He was also an accomplished alpinist, largely responsible for the growth of mountaineering as a sport. In short, Tyndall stood at the intersection of some of the most important developments in science and society, and his correspondence touches on all of them. His published correspondence will interest humanists ranging from historians to literary scholars, as well as scientists, from glaciologists and climatologists to physicists and biologists. One of the primary goals of the project is to publish a one-volume calendar of Tyndall's correspondence and to issue (a projected) ten volumes of his collected correspondence, both in print and eventually in an accessible, searchable, on-line format. The other primary goal is to galvanize a community of scholars at varied stages in their careers, from graduate students and postdoctoral researchers to junior and senior scholars, around themes raised through an intense study of John Tyndall. The project puts graduate students at the center of the project, thereby constructing a new cooperative model of graduate student training and research that can be used for other correspondence projects or similar large-scale endeavors. This is an innovative model of graduate education and training that will promote the development by graduate students of new research questions within a collaborative research project fostered at several of the top history of science and technology programs.